U.S.-Austria Cooperative Research: Comparison of Interferometric Measuring Methods (Physics and Materials Research)

This award will support a two-year collaborative project in neutron physics under the U.S.-Austria Cooperative Science Program. The U.S. investigators are Professor Herbert J. Bernstein, Hampshire College; Professor Michael A. Horne, Stonehill College; and Professor Clifford G. Shull, Massachusetts Institute of Technology and Hampshire College. Their Austrian collaborators are Professor Dr. Helmut Rauch and Professor Dr. Anton Zeilinger, both of the Atomic Institute of the Austrian Universities, Vienna. The cooperative project will focus on very cold neutron (VCN) experiments and on the development of neutron Fresnel lenses. Previous neutron optics experimentation has made use of neutrons in two energy regions, so-called thermal neutrons and ultra-cold neutrons. A source of intermediate-energy neutrons, referred to as very cold neutrons, will soon be available at the Institut Laue-Langevin (ILL) High Flux Reactor in Grenoble, France, where much of the work of the Austrian researchers in this project is carried out. The availability of neutrons in this energy range, corresponding to neutron wavelengths of 80 to 100 Angstroms, will allow the cooperating scientists to perform various fundamental experiments and to extend their previous research to this interesting new wavelength region. Professors Bernstein and Horne will provide theoretical support of these VCN experiments. The second project involves a cooperative study of neutron Fresnel lenses, with a view toward achieving workable lenses for focusing a neutron beam. The U.S. and Austrian groups have carried out complementary research and design activities directed toward the development of such lenses. By combining their respective efforts, the scientists expect to hasten the attainment of this goal. These experiments and their associated theoretical investigations are expected to increase our understanding of the basic properties of neutrons and their interaction with matter. The neutron is the most massive particle yet used to routinely demonstrate wave-like properties. This makes neutron interferometry one of the most sensitive probes of matter, and it is thus an extremely useful tool for studying fundamental quantum physics.